Biomedical Image Processing Laboratory

The Biomedical Image Processing Laboratory at the University of Minnesota is a computational resource that will provide image analysis for basic research projects employing transmission electron microscopy, scanning electron microscopy, and confocal and conventional light microscopy. The resource is devoted to research and development in methods that can be used to elucidate biological structure by means of computational analysis and reconstruction of images of macromolecular assemblies, organelles and cells obtained by different microscopic techniques. In addition, the center will provide hardware and software to aid in the three-dimensional representation of the structures that are being studied. Collaborative projects, such as the study of bacteriophage morphogenesis and microtubule-tektin interactions, will take advantage of the facilities and the methods being developed. Further, the center will provide image analysis services to a large core of users at the University of Minnesota Medical School. The center will develop a second-generation on-line image analysis system for the transmission electron microscope, as well as a novel image analysis system for a low-voltage field-emission scanning electron microscope. The center will also take advantage of the fact that many different forms of microscopy and imaging generate similar problems and similar solutions. Thus, the research on methods within one of these areas may be easily applied to other areas within this center.